Analysis of the Lubricating Film in Lip Seals and the Effects of Lip Surface Microgeometry

An analytical model will be constructed to determine details of the physical mechanisms which govern the behavior and performance of lip seals. The model will consist of an analysis of the deformation of the lip surface, an analysis of the flow field within the lubricating film between the lip and the shaft, and an iterative computational procedure. The flow field will be analyzed using a finite differences approach to the Reynolds equation, an approach which is capable of handling cavitation. For small scale apserities and rough surfaces an averaged Reynolds equation will be employed in the analysis. The deformation analysis will rely on an influence coefficient approach based on finite element analysis. The effects of lip geometry will be determined and the results compared with published experimental data. The possibilities of microengineering lip surfaces for improved performance will be evaluated.